IOWA AGEP Evaluation Study

The IOWA AGEP program is an alliance of the three Board of Regents institutions in the State of Iowa: The University of Iowa (UI), Iowa State University (ISU) and the University of Northern Iowa (UNI). The IOWA AGEP alliance is aimed at making institutional changes for a sustained increase in the number of under-represented minorities (URMs) progressing toward the STEM professoriate. Each institution made substantial contributions to the success of their alliance since funding of the original AGEP grant. A key goal was to spread the success in UI’s Mathematics Department through a strategic partnership in Mathematics and Statistics at both ISU and UNI. That initial success gained momentum, and the concepts were disseminated to and adopted by several disciplines across all three institutions.
Specific programmatic approaches included: 1) collectively fostered faculty driven relationships with undergraduate institutions and institutional consortiums; 2) initiation and/or expansion of summer research program opportunities; 3) building programs and fostering a culture of personalized attention and mentorship with meaningful and comprehensive professional development programs; 4) establishment and/or expansion of institutional funding for URM graduate students; and 5) growth of a partnership between the masters programs at UNI with PhD programs at ISU and UI in order to facilitate smooth transition between the institutions. The results have been an increase in the number of URM STEM graduate students with some evidence for their students entering STEM postdoctoral positions that have or will lead to faculty positions.
The institutionalization of these practices has been proven by their sustained AGEP efforts. The collective approaches being undertaken by their institutions make the IOWA AGEP alliance an appropriate consortium to investigate best practices in not only recruiting, matriculating and graduating high quality doctoral students, but also developing postdoctoral programs to foster career progression to the professoriate.
Their proposed evaluation study will rigorously review their past efforts and lay a solid foundation for determining how they can more effectively advance postdoctoral trainees to the professoriate and cultivate a faculty environment that will more readily accept hiring URM faculty candidates. This grant is designed to provide clear evidence for the impact of the overall program, and specific program elements are targeted to improve the progression of URMs to the professoriate. The project’s three goals are to: 1) evaluate the career paths of URM STEM graduate students, comparing AGEP and other students; 2) identify the most impactful AGEP practices; and 3) develop compelling evidence to identify primary paths and barriers to entering the professoriate after PhD completion. For Goals 1 and 2, they will study academic progression (types of degree programs, times to degree, percent completion, etc.) of their students, and they will study the postgraduate employment decisions of their graduates. For Goal 3, they will also begin to study the hiring practices that STEM departments/colleges are taking at their Regents institutions through collaboration with the NSF-funded ISU ADVANCE program. They will leverage the ISU ADVANCE work that has identified barriers to the faculty search and hiring process. With the ISU ADVANCE and IOWA AGEP programming having some approaches with focal departments and some with university-wide approaches, comparison of outcomes across programs will be evaluated to determine if university wide or focal departments has a greater impact.
INTELLECTUAL MERIT: The evaluation studies will generate knowledge supporting the approaches to broadening participation, the value of an alliance, and the approach of having focal departments or disciplines. Using multiple data sources (local surveys, focus groups, and national surveys such as COACHE) and newly developed instruments, methods to mine and combine these data sources will be investigated to establish baseline data and approaches for future studies. Analysis of data comparing the impact of department-focused activities vs. campus-wide initiatives will provide other programs focused on institutional change with guidance on how to pursue their changes.
BROADER IMPACTS: The work will be disseminated in archival publications to provide others with information and evidence of effective practices developed in the IOWA AGEP alliance for the recruitment and retention of URMs. The study concerning faculty attitudes toward postdoctoral programs and faculty hiring will add further evidence to the literature on the areas where interventions are needed to address barriers in broadening participation in the professoriate. The results will be used directly to design new interventions in postdoctoral programs and faculty hiring practices and provide a basis for future studies.